Eighth International Conference on Surface Modification Technologies

9416784 Sudarshan Partial travel support is provided to enable a small group of US researchers and graduate students to present their research results at the Eighth International Conference on Surface Modification Techniques in Nice, France, September 26-28, 1994. ***